"The Genetics of Sex Chromosomes in the Dioecious Plant, Silene alba"

Little is known about sex determination or the genetics of the sex chromosomes of dioecious species of flowering plants. It is proposed to identify molecular markers on the large X and Y sex chromosomes of Silene alba. Such markers will make it possible to ask genetic questions concerning sex differentiation, evolution, sex chromosome recombination, and dosage compensation in flowering plants; questions which cannot now be asked. Obtaining such markers will have a significant impact in making such inquiries feasible research areas for many scientists.*** //